Distributed Illumination Problems for Visually-Guided Agents

The proposed research focuses on algorithms to solve illumination problems,
which are a class of geometric optimization problems that focus on where to
place, or how to move, groups of guards in such a way as to illuminate
environments or targets of interest. The objective is to solve this class
of geometric optimization problems, through visually-guided agents, i.e.,
robotic agents with line-of-sight sensors and line-of-sight communication.
The technical approach is based on a novel set of "incremental partition
and deployment" algorithms that effectively solve the classic art gallery
problem for robotic guards with visibility sensors. Our solutions rely on
novel geometric structures that reflect the environment topology, on
navigation algorithms to explore these structures, and on distributed
algorithms to manage the information gathered via local sensing and
communication. The broad research objective is to design distributed
algorithms for various illumination and motion coordination
problems. Useful scenarios arise by considering a hierarchy of
environments, a variety of illumination models, and different tasks.

The proposed research will impact the emerging technologies of robotic and
sensor networks. The focus is on situations where groups of robots with
cameras and other controllable sensors will provide pervasive coverage and
sensing in urban environments. Example applications could include civil
rescue operations and adaptive aerial surveillance. This technology holds
the promise to affect society at large by facilitating a number of critical
tasks in national security, industrial automation, and novel commercial
applications. This research will achieve broad dissemination through
regular publications as well as through the development of lecture notes
and a course on cooperative mobile robotics. The PI will develop software
for distributed illumination problems, geometric optimization and algorithm
visualization. The PI will supervise teams of undergraduate students
performing senior design projects on robotics and controls related
to the broad themes of this proposal, including sensor networks, mobile
robot control, and visual sensing. The PI plans to advertise opportunities
to work on proposal-related projects as widely as possible to attract
under-represented and minority students.